Technical Assistance in Evaluating the NSF Scientific and Technical Personnel Data System

This action provides funds for a project that will examine alternative approaches for a survey of immigrant scientists and engineers and will include estimates of the costs and benefits of each approach. This work is needed before finalizing the design for the survey of immigrants which will be an integral part of STPDS for the 1990's.